RUI: Long-term Dynamics of Old-growth Northern Hardwood Forests: Restoration and Expansion of Permanent Plot Studies

The dynamics of plant communities have long been of interest to ecologists, yet these dynamics are poorly understood. Direct, long-term observations of populations and communities are difficult, forcing the use of indirect methods to study community stability and dynamics. Given the potential anthropogenic changes in climate, the need for long-term, baseline data on forest community dynamics increases. However, there are few areas with large, intact stands of old-growth forest available for long-term inventory and monitoring. This research will use existing data bases from two old-growth stands in northern Michigan to address hypotheses concerning the long-term stability and dynamics of northern hardwood forests. These data bases were initially collected by Forest Service personnel starting in 1934 for one stand, and 1961 in the other stand. These data will be combined with newly collected data sets on species growth rates, seedling establishment, sapling growth, and gap dynamics to test several hypotheses concerning the dynamics of old-growth forest communities. The participation of undergraduate students is a fundamental component of the research program. This research will involve up to 20 undergraduate students over a four year period. Students will be involved with all components of the study form project design and data collection, to data analysis and publication. Overall, this project will provide and opportunity to involve undergraduates in scientific research, as well as gather important long- and short-term data on the effects of climate change on old- growth forest dynamics.